Relation Between Water Input, Water Pressure, Surface Speed and Basal Till Deformation, Storglaciaren

This award is for support of a project to study a small valley glacier in northern Sweden, Storglaciaren. The three objectives of this project are 1) to develop an empirical relation between melt rates on the glacier surface and meteorological forcing, 2) to establish a relation between subglacial water pressures and velocities at the glacier surface, and 3) to measure strain rates, shear stresses, and water pressures in the subglacial till in order to establish a constitutive relation for till deformation. A long- term goal of this work is to develop a model to predict glacier motion on diurnal to seasonal time scales.